Student Support for the 2003 GEC

This award provides support for student travel to and participation in the 2003 Gaseous Electronics Conference. The conference is being held in San Francisco, CA, USA, on 21-24 October, 2003. All students who receive support will present a paper at the conference.